Mathematical Sciences: A Computational Model of Aquatic Animal Locomotion

This research is concerned with the computer modelling of the fluid dynamics of aquatic animal propulsion, in which the fluid motion is described by the incompressible Navier-Stokes equations and the immersed organism is regarded as a filament undergoing time-dependent motion. In contrast to previous studies there is no restriction placed on the size of the Reynolds number or on the dependence of the amplitude of the swimming motion upon its direction. Among the specific goals of the research are the modelling of different modes of swimming such as jet propulsion and undulation and the modelling of three-dimensional motions. The motions of immersed animals in water have always been of interest to naturalists and fluid dynamicists, both for their inherent aesthetic beauty and for the insights they provide into our understanding of the fluid dynamics of bodies moving in air and water. Here the principal investigator will use the power of a supercomputer to model the behavior of organisms swimming in water over a range of body shapes and sizes and speeds that has not been attempted before.